Program in Nonlinear Waves, Kinetic Theory and Hamiltonian Partial Differential Equations-Fields Institute, Spg 04

Abstract

Award: DMS-0352061
Principal Investigator: Nicholas M. Ercolani

This proposal is for support of junior US based mathematicians to
participate in scientific activities at the Fields Institute
during the thematic program semester in Nonlinear Waves, Kinetic
Theory and Hamiltonian Partial Differential Equations (PDE) that
will take place during the Spring semester of 2004. The focus of
the semester will concern areas of research on PDE that are
motivated by nonlinear wave theory, kinetic theory, and
Hamiltonian systems. Hamiltonian PDE form a class of linear and
nonlinear partial differential equations which share the property
that they can be written in the form of a Hamiltonian system with
infinitely many degrees of freedom, using various and sometimes
nonclassical symplectic structures. Principal examples include
nonlinear wave equations, nonlinear Schroedinger equations and
Euler's equations for water waves. The analogy with dynamical
systems raises a number of basic questions, which form a part of
the motivation for this semester of focus on Hamiltonian PDE. Of
particular note is the connection that has been established
between the theory of kinetic equations coming from statistical
mechanics, and the nonlinear systems of PDE which arise in their
macroscopic limits. The paradigm is the fluid dynamical scaling
limit of the Boltzmann equation, but there are numerous emerging
areas of relevance for this analysis, including the beginnings of
a mathematically rigorous foundation for the theory of nonlinear
wave turbulence.

The organizers are expecting this thematic program to be a very
dynamic focus of research on Partial Differential Equations that
model a variety of physical phenomena, such as planetary motions,
lasers and optical fiber systems, ocean waves and fluid
turbulence. The character of the program is broadly
international, and it represents an opportunity for exposure for
young mathematicians. The short course series, the four workshops
and the symposia are especially appropriate for participation by
developing research mathematicians or physicists early in their
career. The organizing committee believes that the program will
engender further interaction and lasting collaboration among
participants from various disciplines. Additionally, the
participation of women and under-represented minorities will be
actively encouraged.